Mesoscale Structure of Fronts and Weather

Kreitzberg will study winter fronts and weather using data sets from special observational programs (GALE, 1986; and STORMFEST, 1992) in comparison with detailed numerical model solution fields. The goal is to determine the role of fronts in producing clouds and precipitation in winter. The hypothesis is that the role of strong fronts in producing these patterns is substantial, but that it has been obscured until now by the lack of high resolution (mesoscale) information on the structure of the phenomena. A key task will be to determine how well models can reproduce frontal structures that can be resolved in the special data sets. The research includes participation in the STORMFEST experiment particularly in directing the research aircraft, the King Air, in its surveys of these structures. Detailed, real-time model predictions will be used to guide research aircraft deployment and interpretation of mesoscale observations in these regions. This novel approach, if successful, will be a breakthrough in the conduct of mesoscale field experiments. It has the potential for much more economical and effective use of relatively expensive aircraft as research platforms in already scheduled experimental components of the U.S. Weather Research Program over the next decade.